Heavy Atom Isotope Effect Studies of Organic Reaction Mechanisms

This grant in the Organic and Macromolecular Chemistry Program supports the research of Professor Authur Fry, which aims at studying reaction pathways through the use of isotopes. When a particular element like hydrogen or carbon is replaced by a heavier isotope of that element then a difference in the rate of the reaction may be noted if the isotope itself is directly involved in the slow step of the reaction. This is an elegant method of abstracting mechanistic information from chemical reactions. Chemical compounds which differ only in isotopic composition sometimes react at slightly different rates (kinetic isotope effects). By relating the structures of the reacting compounds to whether or not isotope effects are observed (and, if so, to the size of the isotope effects) much information can be deduced about the details of the paths by which these molecules react. Correlation of experimentally measured and theoretically calculated isotope effects is believed to be one of the best methods for determining details of transition state structure, motion through the transition state, and the timing of bonding changes in chemical reactions. The method is most powerful when used with compounds successively labeled at all positions suspected of undergoing bonding changes, and especially when substituted phenyl groups are located near the reaction centers. This research utilizes these techniques in determining mechanistic details for a wide variety of additions, elimination, rearrangement, substitution and oxidation/reduction reactions. Current research is focused on carbon-14 isotope effect measurements in elimination, addition and substitution reactions. Specific systems being studied include additions of bromine and arylsulfenyl chlorides to substituted styrenes and cinnamic acid derivatives; elimination reactions of DDT-related compounds and other 2-phenylethyl systems (Elcb-like mechanisms); and solvolyses of highly deactivated (by triflouromethyl groups, etc.) 1-phenylethyl systems (El/SN1 mechanisms).